SENSORS: A New Laser-Based Sensing System for Monitoring and Control of Webs

Abstract
0428397
PI: P. Pagilla
Oklahoma State Univ

The term web is used to describe materials, which are manufactured and processed in a continuous, flexible strip form. Examples include plastics, paper, textiles, metals, and composites. A novel laser-based fiber optic sensing system for monitoring and control of a web is developed in this project. The sensing technique uniquely combines concepts from Doppler's frequency shift of scattered light from the web edge, directional sensitivity property of the optical fibers, and collimated laser light. This technical integration will lead to the development of a versatile web sensing system that can measure web lateral position, lateral velocity, transport velocity, flutter, and profile. Since the sensing scheme uses the scattered light from the web edge, the technique is equally suitable for use with transparent as well as opaque web materials, which is not the case for existing web sensing methods.

This research project is expected to advance the science of web handling and sensor technology, and improve operation of web process lines.

This is a project supported under Sensors Initiative NSF 04-522